Computer Enhanced Learning In Mathematics

9350992 Mitchell Students can be passive in their approach to learning mathematics, and they too frequently are unmotivated to expend much effort on learning this subject because they fail to see the relevance, importance, and power of mathematics. This project is actively involving students in the process of learning, and giving them a feel of the potential effect of mathematics on their lives. In order to do this, they are establishing a networked computer classroom/laboratory dedicated to mathematics. This is enabling students to learn by discovery instead of by memorizing facts, to concentrate on concepts instead of the details of arithmetic, to interact with one another and the mathematics instead of struggling alone or withdrawing from the situation, and to receive immediate attention from the instructor-via the network eye instead of only discovering that their work is in error later, while doing their homework or on an exam. ***